48th Annual Symposium of the Society for Developmental Biology, The University of California, Berkeley Berkeley, California, June 18 - 21, 1989

The proposal requests funds to defray travel expenses for speakers at the 48th Annual Symposium for the Society for Developmental Biology which will be held at the University of California, Berkeley, Calif., June 18-21, 1989. The title of the symposium is Genetics of Pattern Formation and Growth Control. Topics will include; the establishment of polarity, the involvement of growth hormones and oncogenes in early development, and the genetic control of lineage determination, among others. %%% There has been enormous progress recently in understanding genetic mechanisms active in controlling pattern formation during embryonic development. This meeting brings together researchers working in a wide variety of organisms that have been at the forefront of this progress. The speakers have also been chosen as those able to present this work to the somewhat more general audience of developmental biologists that attend this meeting. It therefore serves a valuable educational purpose for the field.